Shallow Level N-Type Diamond

Rockford Diamond Technology, Inc., proposes to study the diffusion of n-type impurities and the formation of p-n junctions in diamond. The parameters of prospective n-type dopants: position of impurity levels in the diamond band gap, diffusion coefficients of impurities, solubility, electrical activity, influence of impurities on the mobility of charge carriers, and p-n junction characteristics will be determined.